PER: Engineering Research Center for Subsurface Sensing and Imaging Systems

Abstract
EEC-021971
Silevitch

This project is in partnership between the ERC for Subsurface Sensing and Imaging Systems (CenSSIS) at the Northeastern University and the ERC for Computer-Integrates Surgical Systems and Technology (CISST) at the Johns Hopkins University. The common objective of the two collaborating groups is to develop core imaging and computer technologies to assist the physician in the treatment of diseases of the eye. The two teams will address the problem of integrating a variety of medical images into a common description in the form of a quantitative anatomical atlas of the human eye. The research is expected to deliver an interventional tool to the correct area on the retina, in a manner that maximizes the dosage to the region of interest and minimizes the dosage to healthy areas. The ERC at Northeastern University will bring its expertise in subsurface sensing, and the ERC at the Johns Hopkins University will contribute its expertise in steady hand robotics.